CPMSA: Little Rock Partnership for Mathematics and Science Achievement

HRD-9801615 Carnine The Little Rock Partnership for Mathematics and Science Achievement (LRPMSA) is a collaborative effort for systemic reform of public education that will impact all students. The program goals are to increase student enrollment and success in courses in mathematics and science and to encourage continued study through higher education toward careers in science, mathematics, and engineering. To accomplish these goals, the Little Rock School District has built a partnership effort among leading institutions in the central Arkansas area. Program partners include: higher education - the University of Arkansas at Little Rock, Philander Smith College and the University of Arkansas for Medical Sciences; the Arkansas Museum of Science and History; municipal agencies - the City of Little Rock and Little Rock Housing Authority; the Central Arkansas Library System; and the Little Rock Alliance for Our Public Schools, a business/community association dedicated to excellence in public education. The LRPMSA program focuses on curriculum revision and staff development programs to increase the capacity of educators to motivate students and provide more effective instruction. Program goals include: o Prepare 100% of graduates to successfully complete Algebra. o Increase the number of students who successfully complete upper-level mathematics and science courses. o Adopt a Board policy to require that students in AP courses take the AP examination. o Revise the mathematics curriculum to limit the number of topics for each grade level and subject and to increase the depth at which each topic is taught. o Implement standards-based modules in each elementary/middle school mathematics and science classroom. o Provide the support programs for students in upper level mathematics and science courses. o Increase the knowledge and involvement of parents in the mathematics and science programs. o Prov ide targeted staff development to assist staff in facilitating the above stated objectives.